Conference: 46th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication

The 46th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication 2002, sponsored by the American Vacuum Society in cooperation with the Electron Device Society of IEEE and the Optical Society of America, to be held in Anaheim, CA on May 28-31, 2002 will provide a forum for scientific and technical exchange to advance the practice and progress of nano/microfabrication, electron and ion lithographies, particle beam optics, and forefront applications of nanofabrication.

The conference will enable students to present their research to a high-level international scientific community. Students will observe how scientists and engineers exchange ideas and information at conferences, and they will hear first hand presentations of up-to-date research results in nanotechnology. Students will make personal contacts and learn of employment opportunities. In a special student breakfast, the conference organizers will describe to the attendees how the conference program is put together.